ROLE: Implementation of an American-German Research Network in the Field of Technology-Supported Education

The goal of the proposed work is to redress a need in the educational technology and cognition community for a broad, institutionalized, sustainable research network in support of technology enhanced education. Consequently, the PI is organizing an invitational conference to run in parallel with a similar conference funde by the DGF. The two workshops will begin the process of teaming researchers cross nationally and setting up a collaborative research agenda for technology supported education.